From culture to nature: Scaling up cyanobacterial virus ecology and biogeochemistry

Marine microbes help sustain ocean food webs, fisheries, and global carbon cycling that are critical to the health of the planet and the well-being of coastal communities. Tiny marine cyanobacteria such as Synechococcus and Prochlorococcus produce roughly one-quarter of earth's oxygen through photosynthesis, while the viruses that infect them, cyanophages, strongly influence ocean productivity, nutrient cycling, and carbon storage. Despite their importance, basic information is lacking about which viruses infect which hosts and how these interactions shape marine ecosystems. This project develops new tools to identify virus-host interactions across the global ocean and combines genomic sequencing, artificial intelligence, and laboratory experiments. This improves understanding and forecasting of how ocean viruses shape marine ecosystems and how this affects key ecosystem services. This project also supports student training, public outreach, open-access data resources, and biotechnology applications relevant to microbial ecology and phage-based technologies.

Marine cyanobacteria, including Synechococcus and Prochlorococcus, drive approximately 25% of global ocean primary production and play central roles in marine carbon and nutrient cycling. Cyanophages strongly influence these processes through host mortality, metabolic reprogramming, and carbon shuttling, yet major gaps remain in understanding scalable virus-host linkages, infection frequencies, life history traits, and global ecological distributions. This project addresses these gaps through integrated experimental, genomic, and computational approaches spanning three research aims. Aim 1 develops and empirically validates a global ocean cyanophage-host linkage catalog by integrating AI-enhanced in silico host prediction tools with > 31,000 marine metagenome-assembled genomes. Predictions are experimentally validated using community-wide HI-C and cyanophage-specific ID-PCR methods across environmentally distinct ocean samples. Aim 2 quantifies cyanophage genomic diversity and ecological traits using high throughput Viral Tag and Grow (VT+G) approaches to isolate, sequence, and phenotype hundreds to thousands of natural cyanophage strains. These analyses generate the first large-scale genotype to phenotype estimates of host range, latent period, and burst size for natural cyanophage populations. Aim 3 integrates global GOV2 metagenomic resources, experimentally refined virus-host associations, and VT+G benchmarking data sets to characterize global cyanophage richness, ecotype distributions, transcriptional activity, and inferred biogeochemical impacts. This work generates the first empirically grounded global scale marine virus-host linkage resource and provides foundational ecological parameters for marine ecosystem and biogeochemical models.